Category II: Sagebrush - An AI Inference Resource for ACCESS, NAIRR, and the Nation

Sagebrush is a transformative generative artificial intelligence (AI) inference platform, designed to accelerate scientific discovery by providing researchers with a powerful tool for AI-driven discovery. As fields such as genomics, health care, and civil engineering require the most advanced real-time analysis, traditional GPU-based systems struggle to meet the demands for speed, scalability, and sustainability. Sagebrush addresses these challenges by leveraging cutting-edge SambaNova AI processors, which deliver unmatched performance while minimizing energy consumption.

Hosted at the Texas Advanced Computing Center (TACC) - a leader in high-performance computing and home to the NSF’s Leadership Class Computing Facility (LCCF) - Sagebrush integrates seamlessly with existing NSF resources to ensure broad access for researchers across disciplines. The platform is optimized for AI inference workloads, enabling scientists to interact with large-scale AI models in real time. By offering user-friendly tools like Jupyter notebooks and web-based chatbot interfaces, the platform lowers technical barriers, empowering researchers of all backgrounds to harness AI for transformative discoveries.